Acquisition of a High Performance, Massively Parallel Computer for Hydrodynamical Applications

9413515 Ostriker This award is for the acquisition of a massively parallel, scalable parallel computer. The planned computer will allow development and running of computer codes at Princeton and, for those problems requiring a more powerful computer, running the same codes at a supercomputing center. The research supported by this computing platform consists of the numerical study of hydrodynamics. The application areas to be studied are aerodynamics, turbulence research, and structure formation in the universe. These application areas are typical of computational grand challenges requiring substantial computational resources to solve. ***